Technology Education Consortium Project

9552590 Schultz The Cotati-Rohnert Park Unified School District (CRPUSD), in partnership with the Autodesk Foundation, Hewlett Packard Corporation, Sonoma State University and Santa Rosa Junior College, is implementing project-based learning in elementary schools. Most of the student learning is to be done in project-based activities. The design brief is used to engage students in applying their learning to real world situations of interest to them. Portfolios are used to assess student learning, evaluate teacher professional development and to document the progress in the project. Teacher professional development includes adapting existing materials to the deign brief format; implementing thematic projects, based on design, in the classroom; assessing student progress; and assisting other teachers in implementing project-based learning.